Planning Florida's Global Change Education Initiative

9550433 Melody This project provides funds for an extensive planning process that includes assessing Florida's global change education needs, isolating themes, developing a curricular plan, developing an implementation model, and developing an assessment and evaluation model. Representatives from each of Florida's 67 school districts are involved in the planning process. Since the model will be designed within the Qtate's new Science Curriculum Framework, each district is expected to benefit from access and participation. Cost sharing is not mentioned, however, senior personnel are not charged to the grant.